EAGER: Cybermanufacturing: Cyber-Physical Design-Build Toolkit for Intelligent Information Processing and Flow from Product Conception to Production in Advanced Manufacturing

This EArly-concept Grant for Exploratory Research (EAGER) project is to develop software and use the CONSTRUKTS smart hands-on learning platform for education relevant to manufacturing.

The technical part of the proposal centers around two main goals: 1) Optimization of the CONSTRUKTS wireless sensor network hardware platform; and 2) Design-Build toolkit supporting transformation of physical models to virtual representations for additive manufacturing. Broader Impacts for this project include hands-on workshops with youth from the local community that explore the design of complex systems.